Time-Resolved FTIR System for Biological Applications

The central goal of this project is the development of advanced time-resolved FTIR instrumentation which will allow for the first time the investigation of a wide variety of biological systems at the sub-nanosecond to millisecond range. The proposed instrument will incorporate novel features which will address the major short-comings of current time-resolved FTIR instruments. The project will be supported by the newly formed Center for Photonics Research at Boston University and Bruker Instruments, Inc., a leader in time-resolved FTIR instrumentation In recent years it has been demonstrated that Fourier transform infrared (FTIR) difference spectroscopy can provide detailed information about dynamic changes in the protonation state, local environment and orientation of specific amino acid residues in proteins. This ability is enhanced by the recent development of powerful new methods for band assignments by the introduction of site-directed isotope labels (SDIL) into proteins. However, the current generation of FTIR instruments have fallen short of their promise for probing rapid conformational changes in biomolecular systems. Existing limitations are related to the lack of sufficiently powerful broad-band infrared sources, the relatively slow cycle-time or irreversible response of most biological systems upon activation, the prevalence of biological systems activated by mechanisms other than light, and the need to simultaneously monitor changes in the infrared and UV-visible absorption of a sample. We propose to develop a unique step-scan FTIR system with the ability to record simultaneous sub-nanosecond to millisecond infrared and W-visible absorption changes in biomolecular systems. The instrument will be based on recent breakthroughs in technology for ultra-high intensity broad-band continuous (CW) and pulsed IR sources, rapid sub-nanosecond transient recorders and infrared detectors and step-scan interferometers. The development of a novel synchronized sample step translator (SSST) will make it possible to shorten dramatically measurement times and open the door to the investigation of dynamic processes in a wide variety of biomolecular systems under physiological conditions, including systems not activated by light, systems with very slow cycle times and systems with irreversible processes. By combining this proposed FTIR instrumentation with the recently developed method of SDIL and site-directed non-native amino acid replacement (SNAAR), breakthroughs are expected in the fields of protein folding, enzyme mechanism, ion transport and signal reception. Transfer of the developed technology for future commercial use will be facilitated by the close interaction during the project with Bruker Instruments and through the Center for Photonics Research